Studies of Nucleons and Nuclei Using the Electromagnetic Probe

0072404
Margaziotis
In the proposed work we will study the fundamental
structure of the nucleus of the atom and the nature of the
constituent parts of the nucleus, the neutrons and protons. Measurements
will be made using the very precise, intense, and energetic electron
beam produced by the Thomas Jefferson National Accelerator Facility.
Most of the experiments will study atoms whose nucleus has no more
than two protons and two neutrons. When electrons are used to probe
such relatively simple systems one can compare the results to very
accurate theoretical predictions. Experiments will be performed on helium
nuclei to investigate the structure of these systems under extreme conditions
including those in which the protons and neutrons are very close to each other.
Other experiments will bombard the hydrogen nucleus, which consists of a
single proton, to study particular features of the proton structure. One
experiment will study the structure of a the complex lead nucleus.
In support of these measurements we will continue our work in developing and building the target devices used to contain the materials that are being bombarded by the electron beam. This work involves building structures that can
contain high pressure gases at temperatures a few degrees above absolute zero.
We will also build a cooled lead target that will allow us to use the high
power electron beam without melting the lead. In all these efforts we will
continue to place particular emphasis on working with students, particularly
undergraduate students and selected high school students and teachers. This
effort is being coordinated with an outreach program that we are leading directed
towards high schools in the local area that have large populations of minority students.